Enhancement of Upper Level Chemistry Laboratories Using Environmental Analysis Methods

The upper-level chemistry courses are being modified by introducing thematic experiments focussing on problems of environmental interest. The improvements are coming with the augmentation of available instrumentation to allow for the most common methods of environmental analysis. The specific objective of these improvements is not to teach environmental chemistry, as such, but rather to develop student understanding of the capabilities of the instruments or environmentally important chemical processes, and to assure an intellectual exchange across a set of experiments. To achieve the change, the curricula in the instrumental methods course and physical chemistry laboratories are being modified by adapting relevant experiments from the Journal of Chemical Education, the research literature, laboratory manuals in instrumental and analytical areas, and from standard EPA methods. All of the activities employed to achieve the desired result are hands-on, student-centered, and have significant student reporting components.